Bringing Microsensor and Biosensor Research Results into theElectrical and Computer Engineering Curricula

9315177 Osburn This award of $180,000 is for curriculum development in microsensor and biosensor engineering. The goal is to bring together teams of researchers from two existing engineering research centers to develop academic courses in microsensor and biosensor engineering. Two semester-length courses will be developed by a curriculum committee of academic researchers, assisted by an advisory committee with broad interdisciplinary scientific specialties. In order to broaden their impact, disseminated of the courses to universities in North Carolina will be effected using the state- wide video network. The courses will be accompanied by a new textbook and a series of laboratory experiments.